CISE/EHR/ENG/MPS Collaborative Research Learning Technologies: Design-based Learning of Vertebrate Biology Comparative Anatomy and Physiology of Virtual Creatures

9616441 Dev, Pravati Stanford University Design-Based Learning of Vertebrate Biology, Comparative Anatomy and Physiology of Virtual Creatures Stanford University has been awarded $215,498 for a one-year planning grant to help integrate pre-college education implementation and research questions and strategies with an ambitious program of developing advanced computer-based tools for teaching biology at the secondary and undergraduate levels. Prior efforts to create interactive virtual creatures have restricted interaction to viewing selected structures. This project will develop and evaluate for their educational efficacy a small library of transitional creatures that will allow virtual dissection and other simulated physical manipulations on a personal computer.